Collaborative Research: Coordinated TIMS U-Series Dating and Paloenvironmental Interpretations of Pedogenic Carbonates

PROJECT SUMMARY

With prior support from NSF, we have shown that TIMS (Thermal Ionization Mass
Spectrometry) U-series dating of pedogenic carbonate can provide a precise chronology of
pedogenesis and reliable ages for appropriate Quaternary alluvial deposits (Sharp et al.,
accepted). Though the U/Th ratios of pedogenic carbonate of carbonate-clast dominated
alluvium at Kyle Canyon (Nevada) are too low for U-series dating, pedogenic carbonate in
granitic-clast dominated gravels of the Wind River Basin (Wyoming) is highly suitable.
Precise U-series ages (1-2 percent, 2) may be measured on a few cubic millimeters of
pedogenic carbonate and require only very small corrections for detrital 230Th. Suites of
ages may be screened for reliability using criteria inherent in the U-series results. The time
lag between clast deposition and accumulation of datable carbonate.a critical parameter
if U-series dates of innermost clast-rinds are to be used to date host Quaternary deposits.
is estimated to be 5+ 5 kyr in the Wind River basin. O- and C-isotope analyses of a trial
suite of pedogenic carbonate samples shows that a temporally resolved stable isotope
paleoclimatic record can be constructed using pedogenic carbonate dated by U-series.
Funds are requested to further develop U-series dating of pedogenic carbonate and its
application to the refinement of a Rocky Mountain glacial chronology. Emphasis will be
placed on resolving the timing of Bull Lake glacial advances (at their type locality) with
respect to other regional and global climate records. Moreover, we propose to characterize
the spatial and temporal accumulation of pedogenic carbonate in relict soils of Late-
Middle to Late Pleistocene deposits, and measure the O- and C-isotopic compositions of
carbonate samples dated by U-series. We will interpret these data to provide a
comprehensive history of paleoenvironmental change in the Wind River Basin throughout
much of the late Illinoian and Wisconsin glacial cycles. Ultimately, our goal is to correlate
the soils-based paleoenvironmental record with the geomorphic expressions of
paleoclimatic change.the well-preserved glacial moraines and glacio-fluvial terraces of
the Basin.by establishing a common chronological framework based on precise U-series
ages.

This is a collaborative proposal. Warren Sharp and Ken Ludwig (Berkeley Geochronology
Center) will be responsible for U-series analyses and age interpretations; Ron Amundson
(U.C. Berkeley) will provide field and laboratory expertise in pedology and stable isotope
analysis and interpretation; Oliver Chadwick (U.C. Santa Barbara) will provide expertise
in Quaternary geology, geomorphology and soil stratigraphy as well as familiarity with the
Wind River area.